The First Arkansas Stem Cell and Regenerative Medicine Conference, April 17-18, 2012, Winthrop Rockefeller Institute, Morrilton, Arkansas

1217581
Jin, Sha

Human stem cells, including adult, embryonic, and induced pluripotent stem cells, have the potential for revolutionizing disease treatment. It is expected that many incurable diseases such as diabetes, cancer, Alzheimer’s diseases, etc. can be eventually cured using stem cells. Because of this tremendous potential, huge efforts are being made worldwide to develop new technologies to bring stem cell therapy to patients. In attempt to build a statewide network for promoting stem cell research and identifying key challenges in the field, biomedical engineers in the state have been working with physicians and clinical scientists at the medical school and the National Center for Toxicological Research (NCTR) to organize a statewide stem cell conference, which will be held between April 17-18th, 2012 at the Petit Jean Winthrop Rockefeller Institute, Arkansas. The meeting is designed to bring the unique expertise of both junior and senior investigators together in the pursuit of innovative ideas for creating new stem cell technologies. The goal of the meeting is to foster stem cell research and initiate collaborative research between engineers and physicians across the state. The meeting will increase the awareness of stem cell research in the state and generate support from the public as well as the state and federal governments to promote stem cell research. This model, if successful, will provide an example for others to follow. The meeting will focus on a number of distinctive areas that are highly interrelated. These areas include stem cell therapy, tissue engineering, regenerative medicine, stem cell biology of obesity and diabetes, cancer stem cells, nanotechnologies, stem cell toxicology, and regulatory issues. The meeting will provide a range of opportunities for students and young investigators to learn about stem cell technologies.

Nationwide, Arkansas ranks 41st in the number of high tech jobs. The State has adopted many innovative ways to allow more people access to higher education and advanced training. The University of Arkansas, the only comprehensive graduate research university in the state, has been working toward strengthening Arkansas’ educational base. This statewide stem cell conference will be one of the milestones toward reinforcing stem cell research and education programs in the state. The conference will gather stem cell researchers and educators in Arkansas to discuss the mechanisms of collaboration and identify key challenges in the field. One of the outcomes of the meeting will be the formation of a statewide stem cell coalition, which will eventually evolve into a Stem Cell Consortium, which will promote stem cell research and education programs in the state and nation. The meeting aims at increasing public awareness of stem cell research and calls for more investments on stem cell research from the state legislatures and federal government. A number of top scientists in the field will be invited to the conference. The meeting will include both oral and poster presentations covering stem cell engineering and cell-based therapy, tissue engineering and regenerative medicine, stem cell biology of obesity and diabetes, and stem cell toxicology and regulatory issues. Students and young investigators will be offered a range of opportunities to interact with senior investigators who will serve as role models for them. Students will be extensively exposed to stem cell research throughout the meeting. The meeting will also attract honors undergraduate students. They will have an eye-opening experience in a multidisciplinary stem cell and regenerative medicine research environment. The meeting proceedings will be disseminated through internet and meeting reports generated from the meeting. It is expected that stem cell research will remarkably boost both education and research programs, not only in the field of stem cell research but also in other areas, which will impact both the state and the nation.